Improvement of Middle and Junior High Math Teaching Through Materials for Inservice Delivered via Telecommunications Networks

This two year project proposes to design, develop, produce and evaluate instructional materials for incorporation in inservice programs to be delivered to underprepared middle and junior high school mathematics teachers in Utah via telecommunications networks. The materials will focus on the specific needs identified by the Underprepared Math Teacher Assessment Project and will include: (1) video lecture and discussion presentations enhanced with computer graphics; (2) videos of model lessons conducted by exemplary middle and junior high school teachers; (3) videos analyzing problems and situations commonly confronted by middle and junior high school math teachers; (4) guidebook with exercises, explanations, and resource information to be used in conjunction with the videos. These tapes will have open and closed caption for use by hearing impaired teachers. This Utah State University project involves classroom teachers, local school districts, Utah Office of Education and national review boards. There is significant cost sharing by the school districts, the State of Utah and the university.